Democratic Consolidation and Electoral Politics in Comparative Perspective: The Hungarian Parliamentary Elections of 1998

Funding for this research covers the cost of purchasing 30 minutes of interview time in a national survey of the Hungarian electorate to be conducted in the Szazadveg Policy Research Center immediately after the May 10, 1998 Hungarian parliamentary elections. By providing funds for this project in a timely manner the PIs will be able to incorporate the case of Hungary within the 11 nation Comparative National Elections Project, thereby adding a second theoretically crucial East European case to a systematic comparative study of the social structural, organizational and attitudinal underpinnings of democracy in post-authoritarian and post-totalitarian systems. Because of the time at which the election occurs, this project was funded as a Small Grant for Exploratory Research (SGER). The SGER mechanism allows for a sound theoretic and methodological investigation of important former post-authoritarian and post-totalitarian systems. The Program Directors for Political Science and Eastern European Programs support this SGER award.